Aperiodic order: spectral theory, combinatorics, and dynamics

The central object of study are Schrodinger operators with potentials
displaying aperiodic order. In one dimension there have been recent
advances in the understanding of their spectral and quantum dynamical
properties, particularly in the case of the Fibonacci potential and
related models, so-called Sturmian potentials, which are the standard
models of one-dimensional quasicrystals. It is the goal of the proposed
research to extend the theory to larger classes of potentials in one
dimension and to tackle the higher dimensional case. A crucial tool in one
dimension is the trace map, an energy-indexed dynamical system which can
be used to characterize and study the spectrum of the operators. Along
with combinatorial partition results and Gordon-type criteria one can
obtain good bounds on generalized eigenfunctions from which one can deduce
spectral and quantum dynamical consequences. It appears feasible that this
approach is applicable to potentials beyond the class of Sturmian
potentials -- sufficiently low complexity should suffice to induce
partitions and trace maps. In higher dimensions the main goal is to find
an analog of Gordon's criterion which can serve as a link between
combinatorics and spectral theory.

The mathematics of aperiodic order is a young emerging field that has
sparked a lot of research activity since the mid-nineties. Researchers
from disciplines as diverse as spectral theory, group theory, dynamical
systems, combinatorics, and algebraic topology have found a common
ground that was motivated by the discovery of quasicrystals in 1984
and the subsequent reconsideration of the nature of order and ordered
structures. By now, quite a number of structural models for quasicrystals
have been proposed. Joint efforts are being undertaken to investigate
their properties and shed light on why quasicrystals exist, how they form,
why they are stable. Regarding their electronic transport properties, it
is expected that quasicrystals may exhibit anomalous behavior. It is
therefore planned to study transport properties of Sturmian and related
models from this perspective.